Proteins Involved in Neuronal Growth Cone-Target Binding

The objective of Dr. Sajovic's project is to do preliminary experiments to identify and study molecules involved in the general phenomenon of binding of growth cones to target cells. In particular he hopes to be able to focus on those growth cones that have specific high affinity GABA uptake systems. He will use the calcium phosphate coprecipitate method of DNA-mediated gene transfer to generate transfected cells expressing target cell proteins involved in the binding of growth cones. These cells will be screened for the binding of radiolabelled growth cones made by the fractionation of neonatal rat forebrain. Membrane preparations from binding-positive transfectants will be used to immunize guinea pigs. Monospecific reagents will be generated from polyclonal antisera by absorption with naive (untransfected) L cell membranes, and the use of a Lambda gtll cDNA expression library made from embryonic brain. In this approach, each positive recombinant phage isolate that is selected from the library with one serum is grown in bulk, and its fusion protein used to affinity purify a monospecifc activity from that serum. At the same time he will generate and characterize monclonal antibodies against proteins of the growth cone proper. All of these reagents will be characterized as follows: ability to block binding of growth cones to transfectants or other target cells; biochemical specificity in immunoprecipitations and Western blots; and immunohistochemical staining pattern. Each monospecific reagent will thus allow him to characterize a particular protein involved in growth cone-target binding.